Mathematics On Demand

Mathematical Sciences (21)

This project enhances the knowledge and skills of students in developmental mathematics courses by providing on demand access to mathematics instructions. The project also contributes to the research literature on the use of computer-assisted instruction in developmental mathematics. The web-based courseware Assessment and Learning in Knowledge Spaces (ALEKS) is adapted and implemented. The project includes a 36-station computer lab for the use of ALEKS and video clips to go along with the lab. Web cameras that are used for remote student-faculty interaction are also included. This integration of technology in mathematics education is accompanied by extensive faculty development.